Transforming Science Mathematics Engineering and Technology (TranSMET)

Morris Brown College requests as Planning Grant of $50,000 form the National Science
Foundation to support TranSMET -Phase I, a period of academic self-assessment,
understanding, and planning around those issues of infrastructure, faculty and student
preparedness that pose barriers to desired student outcomes in the science, math, engineering,
and technology disciplines. The 10 month planning phase is designed to culminate in 1) a
comprehensive five-year proposal that will catalyze the pedagogical reformation of Morris
Brown College by 2) conducting a thorough analysis of the College's SMET infrastructure and
programs and to develop a realistic and workable plan for implementing changes; and 3 )
developing a process of consistent assessment and evaluation of SMET programs. With the
formation of TranSMET Morris Brown College plans to design a series of three retreats
(meetings and workshops). Phase I of the project will culminate in a complete analysis of its
current SMET infrastructure, the formation of a permanent assessment and evaluation process
for all present and future SMET programs, and fmally the development of a comprehensive
multi-year proposal to increase minority participation in the SMET "knowledge workforce."